Molecular Spectroscopy

In this project in the Experimental Physical Chemistry Program, William Klemperer of Harvard University will study the spectroscopy of weakly bound molecular complexes. The goal of this research is to examine both the structural and dynamical aspects of molecular interactions and obtain a quantitative understanding of the intermolecular forces. Microwave and millimeter coherent radiation will be used to determine hyperfine structure and electric dipole moments of the ground and low energy vibrational states. Higher vibrational states will be studied using laser induced fluorescence and vibrational overtone spectroscopy. The fluorescence of vibrationally excited species undergoing photodissociation will be analyzed to determine vibration-vibration transfer during the photodissociation process and the distribution of quantum states of the photofragments. Ab initio calculations will be used to determine potential energy surfaces which are consistent with the experimental data. The structures of molecules and the attractive forces between them are, in part, responsible for their reactivity. This research will provide detailed information on the nature of these interactions and the effect of molecular structure on chemical bonding.